Computational Polyhedral Geometry: Applications in Algebra, Combinatorics, and Optimization

The investigator uses methods from commutative algebra,
convexity, and analysis to design computer algorithms that allow
the practical fast detection or counting of lattice points inside
rational convex polytopes. The main idea is to represent the
lattice points using rational functions. This can be done in at
least three different complementary ways. He implements the
methods in the computer software LattE. The investigator uses
this software to help investigate theoretical questions in
combinatorics (properties of Ehrhart functions), algebra
(representation theory and partitions), and optimization (new
integer programming algorithms).
The investigator carries out geometric, analytic, and
computational studies of problems in the convexity and
combinatorics of polyhedra, including development of algorithms
and software. Informally speaking, the project can be thought of
as an attempt to understand how to count the possible
non-negative integer solutions of a system of linear equations.
With two unknowns, this amounts to counting the number of
regularly distributed points -- lattice points -- in a polygon.
With more unknowns, the solutions correspond geometrically to the
higher-dimensional analogs to cubes and polygons. Examples of
regularly distributed points are arrangements of atoms or
crystals. Many of the theoretical questions under study are
motivated by problems in data security and computation (in the
context of RSA encryption, which is used in internet
transactions), operations research (via certain techniques for
solving integer programs when levels of uncertainty are
expected), statistics (contingency tables, data analysis), and
problems in abstract algebra (number theory, representation
theory). The training of students is a very important component
of the project.